Conference on Harmonic Analysis and Partial Differential Equations

ABSTRACT

PIs: Steven Hofmann, Loukas Grafakos, Alex Iosevich,
Igor Verbitsky
Proposal: DMS-0222187
Institution: University of Missouri at Columbia

This proposal requests funding for a conference on Harmonic
Analysis and Partial Differential Equations to be held in
Columbia, Missouri during the period May 8--11, 2002. The
conference will last 4 four days and is expected to have
70-80 participants among which 20 will be invited speakers.
Several world's leading experts in the emerging connections
between combinatorics, analysis and PDE will speak at this
conference. NSF funds will be use to support travel expenses
and room and board for thirty graduate students.